The Laser-Mossbauer Method

Sorescu 9800753 This project is led by a female scientist at Duquesne University, a primarily undergraduate institution. The research goals are to understand and correlate the mechanisms and controlling factors of the nucleation and growth of micro-structural phases in amorphous and other media during laser irradiation treatment. The work will add to our understanding of excimer laser processing of a wide range of materials, including glassy ferromagnets. This project will establish methodology to tune magnetic materials properties from soft to hard, by affecting the magnetic coupling between their crystallites. New information on the fundamental effects underlying the interaction of laser radiation with partially and completely crystallized metallic glasses will be obtained, and the possibility of controlling the magnetic texture and phase equilibrium in thermally-annealed metallic glasses will be examined by combined application of transmission and conversion electron Mossbauer spectroscopy, dc hysteresis loops and ac magnetic susceptibility measurements. The research will involve undergraduate and graduate students in novel research activities and will have a significant impact on the scientific infrastructure at Duquesne University. The project includes the purchase of a new excimer laser that is essential for the proposed research. %%% This project is by a female scientist at the predominantly undergraduate educational environment at Duquesne University. The research employs a novel combination of laser processing and Mossbauer spectroscopy to produce new materials via micro- structural processing. The project includes the purchase of a new excimer laser that is essential for the proposed research. The laser pulse induces micro-structural changes in textured materials and this modifies the magnetic and other properties of the materials. The research will focus on amorphous materials, particularly amorphous magneti c materials of interest to the information storage industry. The project will involve both undergraduate and graduate students in innovative research projects dealing with materials preparation, Mossbauer spectroscopy, and in situ laser processing. ***